Topology of Four-Manifolds

Proposal: DMS-0072775
PI: Peter Teichner

ABSTRACT

This project studies the topology of 4-dimensional manifolds. The
most prominent problems are the characterization of good
fundamental groups for the 4-dimensional s-cobordism theorem, the
formulation of a 4-dimensional (homology) surgery theory, and the
understanding of the topological knot concordance group. The
existing techniques from nilpotent/solvable group theory and higher
order intersection numbers of 2-spheres and Whitney towers in
4-manifolds are to be combined with methods from L2-homology and
von Neumann algebras.

One of the most exciting mathematical discoveries in the last
decades is the fact that Euclidean space behaves very differently
depending on whether the dimension equals or doesn't equal four
(which is the dimension we live in, allowing time as the fourth
dimension). More precisely, there is a unique way to do calculus in
Euclidean n-space except for n=4 where there are uncountably many such theories. These are the "exotic" structures on Euclidean 4-space, discovered by Donaldson, Freedman and others around 1983. This project deals with similar questions on more complicated 4-dimensional manifolds. For example, these may
have nontrivial fundamental group, so they are possibly more
similar to our universe than Euclidean 4-space. In this case the
fundamental questions are still wide open and there seems to be a
deep relation to the "continuous dimension" introduced by von
Neumann in his work on quantum mechanics.